Teaching Mathematics Methods Using Interactive Videodisc

The Teaching Mathematics Methods Using Interactive Videodisc Project will develop an interactive videodisc instructional program to prepare preservice elementary teacher to integrate content, manipulatives, methods, and learning styles into their mathematics teaching. This project will be a collaborative effort involving mathematics educators from Arizona State University, classroom teachers from local school districts, elementary education preservice teachers and the projects' advisory board. The instructional package will consist of one Level three interactive videodisc containing instructional segments. The interactive videodisc instructional segments will be composed of animation, a master university professor teaching mathematics with manipulative materials, and exemplary classroom teachers using the manipulatives with first, third, and fifth grade students. Included in the project are the development of a printed instructor's guide and computer software with Hypercard stacks to access designed programs that will emulate the use of content, manipulatives, methods, and learning styles in the elementary classroom. The cost sharing will be thirty percent of the NSF portion.